The Computer Exhibit Kits Program

The Computer Museum proposes to initiate a Computer Exhibits Kits Program whose goal will be to foster a better understanding of computer science and technology among the general public. The program proposes to develop and disseminate nine different kits, each consisting of a computer program, documentation, educational materials and, in some cases, specialized hardware. Other museums and science centers will be able to purchase these well tested kits at modest cost and implement them on personal computers to create exhibits for visitors ten years old and older. Strong support from other institutions suggests that the program will reach twenty million visitors a year.